Learning from the Mexican Earthquake of September 19, 1985: Behavior of Friction Pile Foundations for Buildings

This research program will investigate the behavior of friction piles when subjected to cyclic loading in both the vertical and the lateral direction. Specifically, the program will involve: (1) full-scale cyclic load tests in Mexico City clay of a three-pile group and of two single piles with amplitudes chosen to represent the loading history experienced by pile foundations during the September 19, 1985 earthquake; (2) cyclic pressuremeter tests at the site of these load tests to evaluate the in-situ behavior of the clay foundation material under these conditions; and (3) cyclic vertical model pile tests in a controlled laboratory environment, using a rod shear device developed at UCLA, so as to evaluate the soil-pile interface behavior.